Software and Hardware Techniques in Knowledge Base Machines

This research investigates knowledge base machines, that is, computer systems which support large amounts of knowledge in flexible form and allow efficient retrieval and reasoning. The approach taken is to apply techniques recently developed for text retrieval systems (such as signature files and special hardware for unification based on cellular logic) to knowledge base management systems. The combination of software development and hardware innovation through Very Large Scale Integration (VLSI) is particularly promising. The importance of this work is that large knowledge bases are increasingly being constructed, and it is critical to develop much more efficient means of accessing and utilizing the knowledge in these systems. This award is being funded as one of the 1988 Research Initiation Awards for outstanding new investigators in the Computer and Information Science and Engineering (CISE) Directorate.